Collaborative Design In A Networked Multimedia Environment

In their study of design, engineering students often work without a context. As a consequence, they may fail to understand the social, historical, economic, and other implications associated with the design and manufacture of products. Also, students often design in an environment that is insular and hardly imitative of the team development characteristic of engineering in American industry. This project will investigate some of the potential benefits to collaborative learning and a concurrent design environment when the powerful communication tools of high-bandwidth networking and digital hypermedia are joined. A high- bandwidth network connecting digital hypermedia databases will enable both engineering design operations and information to be exchanged concurrently among users at several remote sites. Research and development of this proposed distributed multimedia environments, should enable students to learn new ways of working with and using technology and hypermedia tools in order to collaborate more effectively. The objectives of this study are as follows: 1. to examine the characteristics inherent in a hypermedia distributed environment (non-linearity, annotations, multiple representations) as a communication medium which supports collaborative design between distant geographic locations; 2. to modify and develop communication tools and resources of collaborative design for use in a distributed hypermedia environments; 3. to analyze communication activities of students in a collaborative design environment in order to promote the teaching of collaboration skills needed for concurrent engineering design; and 4. to introduce computer-assisted cooperative work models into the engineering curriculum.